CLEANER: Planning a Multiscale Sensor Network to Observe, Forecast and Manage

0414300 Harmon This proposal by UC Merced and the Center for Embedded Networked Sensing (CENS) at UCLA targets the greater San Joaquin River basin (SJRB) for distributed, networked sensing of watershed quality.
Creating a large-scale sensor network that integrates in-situ and remote sensor data with state-of-the-art simulators and adaptive management tools will require interdiscipline collaboration of the highest caliber, and will result in an observational network that reveals previously unobservable phenomena. The sensor network will serve as a model for elucidating trends and differentiating between cyclical and episodic trend drivers, including interannual and spatially distributed variations in water cycle components from changes created by global warming and intermittent events, such as brush fires, droughts, and El Nino episodes.